REU Site: Bug Wars: A Collaborative Software Testing Research Experience for Undergraduates

This funding establishes a new CISE Research Experiences for Undergraduates
(REU) site at Utah State University. The project, called
Bug Wars, exposes students to research on software testing and AI
planning through both competition and collaboration. This project will
create new knowledge about user-session-based testing, model-based
testing with AI planning, and the combination of these two techniques
as applied to web applications. A novel feature of this REU is that
it encourages both competition and collaboration. The students initially
split into two teams that strive to find the most faults in web application
systems under test. One team collects, reduces, and prioritizes
user-session-based test suites. A second team uses machine learning to
build models of the software and AI planning to generate test suites.
Students compete to show the merits of their approach on the same systems
by considering the sizes and fault detection effectiveness of their
test suites. The students then critically discuss their work and propose
combining the different approaches to further improve effectiveness.

The broader impacts of this research are that twenty-four students over a
three-year period have the opportunity to participate in a supportive
environment that encourages them to pursue graduate studies in Computer
Science. The students are better prepared for graduate school as they gain
basic research skills, including the formulation of research questions,
design of experiments, critical evaluation, and written and oral
communication.